Linking nearshore kelp forest dynamics to sandy beach ecosystems

Primary producers, such as plants and algae, form the basis of most food webs and their productivity and fate fundamentally shape ecosystems. Often, however, food and other resources are delivered to a food web from an outside source, providing a subsidy to the recipient ecosystem. Understanding these types of trophic connections and exchanges between ecosystems is necessary for predicting how food webs may respond to change, whether environmental or anthropogenic. Despite their potential importance, quantitative evaluations of cross-ecosystem material fluxes, variation of these fluxes in time and space, and ecological responses of recipient communities are lacking, particularly for marine ecosystems. By investigating links between a source ecosystem, kelp forests, and a recipient ecosystem, sandy beaches, this project will expand and transform our understanding of cross-ecosystem fluxes in the coastal ocean. Nearshore kelp forests are highly productive marine ecosystems characterized by large seasonal and interannual variations in net primary production (NPP). More than 90% of kelp forest NPP is exported to adjacent ecosystems including the intertidal zone. Lacking attached plants and algae, sandy beach ecosystems near kelp forests depend heavily on imported drift kelp (wrack) to support complex and diverse food webs. Although sandy beaches are a dominant shoreline type along all U.S. coasts, provide habitat and prey for wildlife, including endangered species, and are highly valued by society as recreational and cultural resources that drive vibrant coastal economies, they receive little ecological study compared to other shoreline types. This lack of knowledge hinders the conservation and management of beaches as ecosystems. Perched on the narrow rim between land and sea, beaches are highly vulnerable to climate change, particularly sea level rise, and will be impacted by changes in climate, as will kelp forests. This project integrates biological and physical approaches to achieve an understanding of the fate and transport of exported kelp, and how variability in this resource subsidy shapes the community structure and function of recipient beach ecosystems. Graduate and undergraduate students will be integral members of the research team, receiving scientific training and mentoring in coastal marine ecology and in public outreach and education. The training and participation of local residents and coastal managers in regular shoreline surveys for beached kelp plants will provide an essential research component of the study and enhance public awareness of scientific research, coastal ecology and the role of links between kelp forest and beach ecosystems. The results of this project will provide new insights into the dynamics of connectivity between coastal marine ecosystems that can be applied to their conservation and management.

The project seeks to understand trophic connectivity between a donor ecosystem, kelp forests, and a recipient ecosystem, sandy beaches, with two primary goals: 1) an evaluation of how variation in kelp wrack input affects patterns and processes in beach ecosystems and 2) a quantitative understanding of trophic connectivity through physical transport and input of drift kelp biomass from kelp forests to sandy beaches. The project will begin with two years of intensive work at a well-studied kelp forest in the Santa Barbara Channel, Mohawk Reef, and along 10 km of adjacent coastline, where the research team will measure intertidal community structure over time in response to variability in kelp inputs. To assess effects of variation in wrack input on ecosystem function, they will also measure kelp consumption and secondary production rates of intertidal consumers on adjacent beaches. They will directly observe fate and transport of kelp using complimentary approaches: 1) tracking kelp plants tagged at Mohawk Reef using drifters with GPS; and 2) tagging large numbers of kelp plants (2000) with "drift cards" at Mohawk Reef for recovery by the project team and trained volunteer beachcombers. Ending distributions of recovered drift cards and drifter tracks along the shoreline will then be computed. These data will be used to inform and validate a kelp forest-to-beach kelp transport model based on numerical simulations of coastal surface currents from the Regional Oceanic Modeling System (ROMS). Using predicted kelp beaching rates from this model run regionally, the investigators will then sample community structure and wrack biomass at a larger set of beaches spanning 100 km of the southern California shoreline to test the generality of research findings. This combination of fate and transport observations, beach community surveys and process measurements, and modeling will allow the investigators to characterize temporal variability in kelp subsidy inputs and the consequences of this variability for community structure and function of recipient beach ecosystems.